An Automated X-Ray Diffraction System for Undergraduate Instruction

Through this project, the Departments of Geological Sciences and Physics are provided funding for an x-ray diffractometer (XRD) with a host computer and associated software for use in undergraduate education. This project provides instruction that integrates science and technology in both geology and physics for the following student groups: (1) undergraduates that are planning careers in precollege teaching, (2) current science teachers enrolled in an M.A. in Teaching Science, and (3) science majors in geology and physics. This goal is accomplished by providing students with direct access to a modern instrument for student research at the introductory science level and in more advanced science laboratory courses. XRDs are central components in industry and the research community. If our students are to function effectively in these technology-dependent environments, they need experience with such equipment. Students in both disciplines learn about the principles of x-ray diffraction and the utility of such equipment. For the non-science-majors, experience with an XRD system will take away the abstract nature of what they learn and make it a practical reality. The choice of an XRD system is based upon issues of utility, dependability, and safety. This instrument is powerful enough to serve adequately in the advanced laboratories and in directed student research. The new interlocks and remote computer control help ensure the safety of the students and protect the equipment from abuse.